Opportunities For Cooperative Alliances, Support of Turtles: From Structures to Strategies of Life Symposium, Jena, Germany

0124271
Wyneken
This award supports Jeanette Wyneken of Florida Atlantic University and primarily junior researchers from various U.S. universities to participate participation in an international symposium on turtle research in Jena, Germany. The goals of the symposium include identifying important integrative directions in the field, exchanging ideas among experts with varying perspectives, facilitating contacts between those early in their careers and experienced researchers, and enhancing the opportunities for researchers on both sides of the Atlantic to engage in longer-term collaboration.